The Structure of Smooth 4-Manifolds

DMS-0204041
Ronald Stern

For the last 25 years it has been the goal of exciting and deep
mathematics to classify smooth 4-dimensional manifolds. An arsenal of
techniques has been thrown at this problem; it is the focus of dozens of
research groups. The most successful attempts have associated to each
4-dimensional manifold the solution space to complex systems of
equations that arise in particle physics: the Yang-Mills equations and
the monopole equations of Seiberg and Witten. These solution spaces are
useful in distinguishing cunningly constructed 4-dimensional manifolds.
The result of this assault is that 4-dimensional manifolds are more
complicated than we ever expected. As a result, it is impossible to
predict a classification scheme. It is the goal of this project to more
systematically approach the existence and uniqueness framework for a
classification scheme. The first goal is to understand why smooth
structures on 4-manifolds are sensitive to local topological change.
This project describes the underpinnings of how the smooth structures
change in the known constructions. Log transformations on
null-homologous tori are shown to play a significant role. The first
step is to determine if two smooth structures on a fixed homeomorphism
type of simply-connected smooth 4-manifold are related by a sequence of
log transformations on null-homologous tori. The second step is to
determine the characteristic numbers of irreducible smooth 4-manifolds
and to determine how these topological invariants affect their
Seiberg-Witten invariants. A notion of general-type smooth 4-manifolds
is given and a conjectured restriction on their Seiberg-Witten
invariants is proposed. This project outlines new constructions that
show that there are general-type manifolds that fill out the regions
determined by these restrictions. Careful investigation of these
constructions should indicate why they are best possible. Other
questions related to potential restrictions on the characteristic
classes of irreducible simply-connected smooth 4-manifolds will be
investigated.

Excitement has been generated by the idea that the puniest of all
forces, gravity, may in fact be a strong as nature's other three
fundamental forces: the strong force which binds protons and neutrons
together in atomic nuclei; the weak force which governs radioactive
decay; and the forces that govern electricity and magnetism. The
perceived mismatch between these three forces and gravity creates a
theoretical nightmare; it's the principle reason we have yet to find a
grand unified theory. However, it has recently been hypothesized that
this weakness is a mirage; the force of gravity only appears weak
because its force is diluted in our own universe and most of gravity's
force radiates out into extra dimensions. All other forces remain
trapped in our 3-dimensional world, while gravity is free to roam other
dimensions. With this hypothesis, there could be other worlds that are
parallel to our own; they all neatly stack up, each oblivious of the
other, with gravity the only force that moves between them. This would
also account for the missing dark matter of our universe; it actually
resides in other parallel universes. New mathematics will be generated
in this project to further explore these ideas. Much of the relevant
mathematics has already exposed the special nature of dimensions three
and four. These parallel universes may be explained by the theory of
(singular) foliations. The proposed study of singular foliations may
structure the way in which we view our own universe -how we stack up
with possible parallel universes. These singular foliations will also
provide new insight into the classification of 4- dimensional
manifolds. At bottom, the goal of this project is to develop more
systematic constructions of smooth 4-dimensional manifolds with the hope
that a general picture begins to emerge that will at least suggest a
classification scheme.